Semiconducting Polymer Infrastructure Award

ECS-9702320 Braun Research equipment will be purchased which will allow the PI to incorporate semiconducting polymer research and educational activities into the undergraduate curriculum at Cal Poly State University. The research and educational activities to be anabled will contribute to the understanding necessary to design more efficient polymer Light Emitting Diodes and to enable high resolution matrix applications.